Correlation, Dating, and Geologic Significance of Late Teriary Tephra-Rich Strata in the Basin and Range Province

Late Tertiary, tephra-rich sedimentary strata widespread in the Basin and Range Province of the Western United States are markedly more abundant than older. Tertiary sedimentary strata, and have accumulated in fault- bounded extensional basins formed province-wide. As a step towards better understanding the nature and regional significance of these tephra-rich strata and their associated basin, better control is needed on their age and geographical distribution. Towards this end PIs will establish the sequence of silicic tephra layers in these sparsely fossiliferous Late Tertiary strata in the northern Basin and Range, and will date selected samples. The tephra will be characterized using trace/minor element chemistry of the glass phase, and size, and shape analysis of the glass particles. For dating the layers PIs will use the 40Ar/39Ar laser fusion technique on sanidine and biotite, common phenocrysts in the tephra. The results will also add to the understanding of time, frequency, and magnitude of silicic volcanism in the Late Tertiary of the region, and the tephrochronology will provide a fundamental reference framework for future structural, stratigraphic, and paleontologic studies of these strata.